Optical and Transport Studies of Tunneling Through Molecules

Abstract Technical abstract: Single-molecule transport will be studied using evanescent-wave coupling of light to microscopic tunnel junctions. The primary experimental tool will be a scanning tunneling microscope with optical access. Alternative tunneling techniques will also be investigated. Molecular films to be studied will range from simple molecules such as benzene to larger molecules with chromophores. Non-technical abstract: Molecular materials are viewed as potentially valuable in electronic and opto-electronic devices. There is currently no adequate understanding of the electronic conduction pathways within molecules at the single molecule level, or of the mechanism by which current can enter and leave molecules through metal contacts. We propose to gain understanding of these processes by probing suitable molecules in microscopic devices with light pulses which can interact with current carried on the conduction paths.